Collaborative Research: Conference: Workshop on Advanced Automated Systems, Contestability, and the Law

This award is in support of an interdisciplinary workshop to be held in the winter of 2023-2024 (current plan is January, 2024). The workshop is organized collaboratively by PIs at Tufts University and Columbia University The workshop's primary objective is to inform the executive branch and U.S. government agencies about new technological advances and related concerns and risks related to the legal contestability of artificial intelligence used in creating government software-enabled processes, regulations, and legal proceedings.

Over two days, the workshop features speakers and panels, all of whom are leading researchers in the field of artificial intelligence and the law.